GPS Measurements of Rock and Ice Motions in South Victoria Land

Whillans, Wilson, Goad OPP 9527571 Abstract This award supports a project to initiate Global Positioning System (GPS) measurements for rock motions in South Victoria Land and vicinity. The results will be used to test some of the leading models for ice-sheet change and tectonism, in particular, whether the continent is rebounding due to reduced ice load from East or West Antarctica and whether there is tectonic motion due to Terror Rift or uplift of the Transantarctic Mountains. A modest program to measure ice motion will be conducted as well. The motive is to test models for ice flow in the Allan Hills meteorite concentration region and to determine whether small glaciers in the Dry Valleys are thickening or thinning. Monuments will be set into rock and ice and GPS receivers used to determine their locations. Repeats in later years will determine motion. Field activities will involve close cooperation with the USGS.